Oceanographic Instrumentation - 2012

The University of Miami requests funding for additional and back-up instrumentation on the R/V Walton Smith, a 96,’ general purpose regional vessel operated by the University of Miami’s Rosenstiel School of Marine and Atmospheric Sciences (RSMAS) as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet.

The R/V WALTON SMITH conducts a substantial portion of her operations in the near shore waters of South Florida and the Gulf of Mexico, providing scientific information relevant to major environmental initiatives. The operations include oil spill monitoring, water management changes, municipal waste disposal, and storm water discharge among others which are deemed critical to the sustainable development of the South Florida and Gulf economy. In 2011, R/V Walton Smith completed 161 days at sea. NSF funded projects accounted for 29% of the total sailing schedule. In 2012, R/V Walton Smith is scheduled for 145 days with NSF days accounting for 26% of the total sailing schedule.

Oceanographic instrumentation requested in this proposal includes:

1) 600 KHz ACDP $35,392
2) Altimeter for CTD $12,665
3) Integrated Optical Bow Sensor Suite $19,955
4) Fume Hood $6,850
5) Time Server, digital displays $5,685
TOTAL $80,547

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.